The Strand Fiord Large Igneous Province: A Multidisciplinary Investigation of its Origin and Paleomagnetic Record

A multidisciplinary study of the Strand Fiord and related volcanics is planned to address several questions of Arctic tectonic evolution and global change, taking advantage of the exposed sections to obtain high-latitude paleomagnetic data. The following five questions will be addressed through the collection of new paleomagnetic, radiometric and geochemical data: (1) What is the exact age and duration of the Strand Fiord volcanics, and do these flood basalt correlate, as do others (Deccan and Siberian Traps), with a global extinction event? (2) What is the relationship between the Strand Fiord volcanics and the older Isachesen volcanics, and can any of these units be used to constrain the geomagnetic timescale? (3) What is the relationship between these volcanics and mantle plumes such as Iceland,and a larger scale activity such as the "superplume"? (4) Can a paleomagnetic record from the Strand Fiord volcanics answer the Nares Strait problem? (5) Can the Strand Fiord volcanics provide geomagnetic paleointensity information for the Cretaceous Normal Polarity Superchron? The study of these geological and geophysical questions is linked through a common sampling scheme: the flow-by-flow sampling of long, continuous volcanic sections for paleomagnetic and geochemical analyses.